The Second International Symposium on Uncertainty Modeling and Analysis ISUMA'93 (to be held April 25-28, 1993in College Park, Maryland)

The field of uncertainty modeling and analysis is currently in the definitive state of intense research activity in almost all disciplines of engineering. Probabilistic methods, Bayesian approached, theory of evidence, statistical techniques as well as fuzzy logic and reasoning are currently being used by researchers to deal with uncertainty. Some of these methods are used by almost all sectors of the U.S. research community, whereas other new methods continue to be mostly used by U.S. researchers in academic institutions. On the other hand, in other countries, especially Japan, researchers and engineers are currently using all these methods more effectively in many engineering applications. The International Symposium on Uncertainty Modeling and Analysis will provide the opportunity and need stimuulus for U.S. researchers and engineers to interact with researchers and engineers from other countries.